The 2000 Gordon Research Conference on Membranes: Materials and Processes

Abstract

Proposal number: 0077434
Proposal type: Investigator Initiated for Conference Support
Principal investigator: Richard D. Noble
Affiliation: University of Colorado/ Gordon Research Conferences

The 2000 Gordon Research on Membranes: Materials and Processes

This award supports partially the participation by invited speakers and discussion leaders from academic institutions at the Gordon Conference on Membranes to be held in New London, NH, from July 30 to August 3, 2000. The sessions scheduled for this year's conference include membrane fundamentals, measurement methods, molecular-sieve membranes, inorganic membranes, membrane applications, modifications, novel membranes, and biomedical membranes. In each session there will be two or three invited speakers. Poster sessions are also planned.

The Gordon Conferences are kept small and are structured to give the participants considerable time for discussion and interaction. They provide a vehicle for communication between research groups, which will be represented here by researchers not only from U.S. universities but also industry and universities in Europe and Japan. This grant is specifically targeted to permit attendance by ten advanced-level graduate students in the conference.